Uncovering the Chemistry of ansa-Chromocene and ansa-Vanadocene Complexes/Innovations to Teaching Inorganic Chemistry

Dr. Pamela Shapiro, Chemistry Department, University of Idaho, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program of the Chemistry Division under a Faculty Early Career Advancement Award to develop the chemistry of bent-sandwich ansa-chromocene and vanadocene complexes in order to uncover novel reaction chemistry, discover new homogeneous catalysts, and further the understanding of the dependence of electronic structure and reactivity on metallocene geometry. Heteroannular bridges will permit a bent ring configuration to be tailored in the bis-cyclopentadiene vanadium and chromium complexes and this will allow an open site to be generated in the equatorial plane of the complexes. The chemistry of these species will be explored and the properties of the compounds will be tuned by adjusting the bridging groups which join the two rings. Also part of this project will be a restructuring of an inorganic chemistry teaching laboratory to emphasize the use of modern techniques and the introduction of computer generated teaching aids to several undergraduate lecture courses. Catalysts are used to improve the rate or efficiency of a chemical reaction. Thus, the search for new, more effective catalysts is an important area of contemporary chemistry. In the research portion of this project a series of vanadium and chromium compounds, which are surrounded by non reactive groups in such a way as to leave a wedged shaped cavity into which small reactants can easily fit, will be prepared. By tailoring the size of this wedge, the ability of the compounds to effect transformations of the molecules with which they interact can be tailored to maximize the catalytic properties of the metals. The educational portion will modernize and improve the chemistry curriculum at the University of Idaho.